Undergraduate Computer-Based Laboratory Instruction

Furman University Department is purchasing computers and output devices for use across the chemistry curriculum. Molecular modeling is being introduced into organic, inorganic and biological chemistry courses. Additionally, the computers are enhancing molecular orbital, statistical mechanics, chemical kinetic and chemical thermodynamics calculations in physical